2010 Huntsville Workshop: Partially Ionized Plasmas Throughout the Cosmos; Nashville, Tennessee; October 3-8, 2010

This award provides support for student participation in the Huntsville Workshop on "Partially Ionoized Plasmas Throught the Cosmos."